CRI: CRD - Supporting the Cetus Compiler Infrastructure for the Community

Proposal #: CNS 07-07931
PI(s): Eigenmann, Rudolf
Midkiff, Samuel P.
Institution: Purdue University
West Lafayette, IN 47907-2108
Title: CRD: Supporting the Cetus Compiler for the Community

Project Proposed:

This project, deploying and maintaining for the community a new compiler infrastructure for multicore and high-end computing, enables community access to the system, provides frontline support for errors of repairs and feature requests, and evolves the Cetus infrastructure with contributions of the user community. Cetus, a source-to-source translator supporting the creation of source-oriented compiler optimization techniques, permits researchers to develop novel techniques and evaluate them in the context a realistic and robust environment. The techniques enabled are needed in languages for modern, parallel computer architectures, and are critical for developing and understanding program transformations and optimizations for such systems. Specifically, Cetus fills the need for languages based on C and is being used by research teams world-wide.

Broader Impacts: Cetus, a successful infrastructure that is being distributed to the community for broad use and impact, is also used as a teaching infrastructure in several courses where it provides the basis for student projects.